Seasonal and Interannual Variability in the Greenland Sea

This analysis of the hydrographic structure of the Greenland Sea will form an integral part of a year-long investigation of the Three- dimensional Greenland Sea circulation using acoustic techniques. It also contributes to an international program of integrated oceanographic research in the Norwegian and Greenland Seas whose objective is to quantify the environmental effects that are active in the production of intermediate and deep water masses. The data base will be produced through a series of oceanographic cruises, undertaken cooperatively with West German, Norwegian, and Canadian oceanographers. The Greenland Sea is an important area for the production of intermediate and deep water masses that sink and spread globally. It is qualitatively understood that the process of interior water mass formation is the result of surface cooling and water column destabilization, but the deep convection events that must be part of the process have to this time not been observed. Acoustic oceanography, specially the year-long array of acoustic moorings that will be set out in the Greenland Sea from 1988 to 1989, has the potential of making these observations, but requires precise and accurate hydrographic information in order to interpret the acoustic data and convert it to oceanographically useful information.